Travel Support for Young Investigators to Attend the 24th International Meshing Roundtable

This award supports participation in the 24th International Meshing Roundtable (IMR) on October 11-14, 2015 in Austin, TX. Meshing is the decomposition of complex objects into simple parts for design, display, and analysis. As technologies change in computing and computer-aided design and manufacturing the demand for meshing seems only to increase.

The IMR conference includes four short courses, four invited speakers, and presentations of reviewed papers, research notes, and posters, and a professional development session particularly targetting students and postdocs. This award will support registration and some travel expenses for a dozen students (undergraduate to postdoctoral, coming from U.S. universities, national labs, or non-profit research organizations) to exchange ideas with experts from around the world, fostering collaboration and recognition that can help them launch their careers. (For selection criteria, see the conference web site: http://www.sandia.gov/imr/)